Start-up Grant for Continued Research in Science Education

Improving the publics" understanding of the scientific enterprise and improving scientific
literacy have been identified as critical goals in the United States. Science learning
occurs in formal (i.e. classroom) as well as in informal (i.e. backyards) settings and there
are likely to be, at least, qualitative differences in outcomes between these learning
environments. It is critical that scientists collaborate with professional science educators
not only to identify the components of scientific literacy, but also to understand how
learning occurs in these different settings and to help provide this information to other
scientists and educators who will be ultimately responsible for the education of the
population in both formal and informal settings. This proposal seeks funding to continue
and complete the important research that I began as a National Science Foundation
PFSMETE Fellow and to support the preliminary research and development of two other
projects that have resulted directly from my post-doctoral position. For the former, I am
proposing to analyze, present and publish my ongoing work on understanding the factors
that most affect student attitudes and motivation in an established Student/Scientist
Partnership, Forest Watch. The new projects include a study of the effects of a
community data collection program called Neighborhood Nestwatch on scientific literacy
in participants, and the development and implementation of two environmental education
courses at Paul Smith's College that will be the cornerstones for the creation of an
environmental science education emphasis within the Natural Resource Bachelor of
Science degree.